Establishing a Digital Library to Support Education in Earth and Space Science

9906648
Snow

The award supports a national meeting of key leaders and educators in Earth and Space Science. The meeting participants will be charged to develop an action plan for the establishment of a national digital library to support undergraduate education in Earth and Space Science. The term "national digital library refers to both a collection of electronic materials, and the community based organization that manages the collection, develops new software tools, and provides consulting and training services to library users. This national digital library is recognized as the central organizing tool for dissemination and coordination of curricular materials and instructional methods, and for developing interfaces with primary data needed for effective inquiry based study of the Earth System.